Collective Motion in Finite Many-Body Systems

This research in theoretical physics is directed at many- body problems in diverse areas - nuclei, molecular dynamics, atomic clusters - which share common mathematical properties. The topics include studying the chaotic nature of large amplitude collective motion in nuclei near level crossings, propagation of many-particle systems in a random field, molecular dynamics at finite temperatures, shape transitions and electronic degrees of freedom of metallic clusters and collective motion of carbon clusters.